CAREER: Spatial Signal Processing for Group Conversation Enhancement

Group conversations in noisy environments, such as restaurants, busy workplaces, and event venues, are among the greatest frustrations for people with hearing loss, but current hearing aids and other assistive listening devices do little to help. Most past research and development work to support hearing has focused on one-on-one conversations, which are easier both for listeners and for hearing devices. This project will develop hearing technology specifically tailored for group conversations that would enhance sounds close to the listener, like around a table at a restaurant, and turn down more distant noise that makes it difficult to hear. The researchers will also study the ways in which background noise, echoes, and motion can make group conversations more difficult. This research can help the roughly 50 million Americans with hearing loss, including older adults, to more fully participate in important career and social activities. The project will also train students to design assistive technology based on input from people with disabilities and will develop educational materials on assistive listening technology for the hearing loss community.

The research will involve both engineering development and studies of human perception. To enhance sound near the listener, the researchers will develop a new signal processing paradigm for proximity-based source separation. Whereas most source separation systems try to isolate speech from each individual talker or focus on sounds from one direction, the developed algorithms will separate signals based on distance from the listener. Key technical challenges are to make the algorithms robust against the unpredictable motion and turn-taking of real group conversations. To ensure that the sounds presented to the listener are immersive, even when the talkers and the listeners move around, the researchers will develop real-time spatial remixing algorithms inspired by virtual-reality audio rendering. These will use a combination of adaptive filtering and geometry-based parametric models. Finally, ecologically valid human behavioral studies will evaluate the impact of noise, reverberation, and spatial acoustic cues on group conversation difficulty using both prerecorded immersive videos and live, unscripted group conversations. The results will be evaluated using a set of milestone demonstrations of increasing difficulty, starting from structured small-group conversations in a classroom and building up to a large, dynamic networking event.